Conference: SIAM Great Lakes 2025 Meeting

This award provides travel support for students and early career researchers to attend the 2025 SIAM Great Lakes Section Conference (GLSIAM 2025), to be held September 27-28, 2025, at the Illinois Institute of Technology in Chicago. The conference will bring together applied mathematicians and engineers from across the Midwest, fostering interdisciplinary collaboration and professional development. Emphasizing the value of a wide range of expertise in tackling complex scientific challenges, GLSIAM 2025 aims to strengthen regional research networks and promote partnerships with societal impact.

The scientific program will explore the intersection of differential equations, computational mathematics, data science, and the physical and biological sciences. Highlights include plenary lectures by leading experts, a poster session, and parallel contributed talks. A key focus of the conference is to increase the visibility of early-career participants, connecting them with peers, mentors, and future collaborators. NSF support will help ensure broad and equitable access to this opportunity. The event will be open to anyone interested in the conference themes. More information can be found through the conference website, https://sites.google.com/iit.edu/glsiam2025/, with updates beginning June 2025.